Time-Sequential Compression of Video Sequences

This award is for a postdoctoral associate in Experimental Science. The associate, Johanna Gisladottir, will be working on image and video compression techniques.